Independent Evolutionary Origins of Tetrodotoxin Resistance as a Test of the Geographic Mosaic of Coevolution

Evidence for arms-race coevolution between predator and prey will be
evaluated in a unique natural interaction between toxic newts and their
resistant snake predators. Newts possess the neurotoxin tetrodotoxin
(TTX), which blocks sodium channels in nerves and muscles. No known
predator can ingest TTX and survive except for garter snakes of the
genus Thamnophis. Previous work demonstrated that predator and prey have
matched levels of defensive and exploitative abilities, but the source
of newt toxicity is still unknown. High Performance Liquid
Chromatography (HPLC) will be used to assay levels of toxin in
laboratory bred and reared newts to determine whether the requisite
individual, genetic and population variation exists for newts to evolve
in response to predators, allowing an evaluation of whether observed
patterns of matching are consistent with an arms race view of
coevolution.
Understanding the interactions between species that drive
coevolution is a major goal of evolutionary biology. Coevolution, in
which one species evolves in response to another species, is thought to
be one of the major engines of biodiversity. Although coevolution is
thought to be a common outcome of many ecological interaction, there are
strong theoretical and empirical reasons to suspect that predator-prey
interactions might be different. This research will shed important light
on natural variation in an important neurotoxin, TTX, which is used
widely in studies of nerve function and development, by identifying the
sources of TTX in amphibians.